Conference on Genetics and Immunology of Chemical Senses: November 8-10, 1988, Monell Chemical Senses Center, Philadelphia, Pennsylvania

This conference on genetics of the chemical senses brings together experts on a variety of chemosensory systems, on cell biology, and on genetics, to discuss genetic and molecular approaches to chemosensory mechanisms. The diversity will expose these top-caliber scientists to new developments and ideas in areas relevant to their research. The issues addressed are of great current interest; the discussion and publication will have significant impact, and show directions where future research can be particularly fruitful, exploiting current technological advances. Stronger interactions should result between the fields of chemoreception, genetics, and immunology, with important potential for the fields of clinical medicine, agricultural applications for insect pheromones, and human genetics.